Randomness and Quasi-randomness of Graphs and Set Systems

Abstract for award of Rodl 0300529

The proposed research aims at deepening our understanding of
spontaneous order (studied in Ramsey theory) and of random disorder
(investigated by quasi-random techniques). One of its goals is to
design efficient methods for finding and enumerating collections of
specified sub-objects in discrete structures. The project seeks
further development of a methodology - the Regularity Method - that
has had a series of striking successes over the past 25 years, and to
apply the method to a variety of problems in extremal combinatorics
and Ramsey theory. In the area of quasi-randomness, one of the PI's
long-term projects is to investigate the properties of quasi-random
sparse graphs and uniform hypergraphs. In particular, the PI is
interested in extending the applicability of the Regularity Method to
these structures.

The understanding of discrete, combinatorial structures is very
important in modern science and technology. For instance,
probabilistic reasoning is crucial in the design of large networks and
of algorithms. In discrete mathematics, one of the most successful
techniques is the probabilistic method, which enables one to prove
results about deterministic objects. One of the more recent
techniques employs the idea of quasi-randomness. A quasi-random
object is an object that shares several properties with many other
objects of the same kind. Quasi-random properties that enable one
to find and enumerate sub-objects of a given type are of particular
interest. The main part of this proposal aims to extend the
applicability of the current techniques to a broader class of combinatorial
structures. The results should lead to applications in different
areas, ranging from phase transition and game theory to theoretical
computer science.